Mathematical Investigation of Nonlinear Free Boundary Problems in Stokes Flow

DMS-9803358

Principal Investigator: S. Tanveer

A Mathematical Investigation of 2-D and 3-D Stokes flow

This proposal outlines a mathematical investigation of a class of
free boundary problems for slow viscous fluid regions in both two and
three dimensions. Following recent remarkable results on the mathematical
structure of such nonlinear free boundary problems in 2-D, we seek to
extend the methodology to free boundary problems in three dimensions,
as well as extend the results to more general doubly connected fluid
regions in two dimensions.

Slow viscous flows arise very naturally in many problems of drops and
bubble motion. These are very important in engineering applications.
Most of the work in this area relies heavily on computer calculation;
for cases when the bubble boundary becomes complicated, such methods are
known to run into difficulties. The proposal is to extend the known
mathematical techniques so as to complement existing computer calculations
with pencil and paper results that gives better intuition on the precise
parameter dependences in at least a few of these problems.